Evaluator Support for Industry/University Cooperative Research Center for Software Engineering

Abstract EEC-9713053 Scarpello This award provides funding for an evaluator for the Industry/University Cooperative Research Center for Software Engineering which is headquartered at the University of Florida with additional activities at Purdue University and five universities in the State of Oregon. The evaluator role is essential to the operation of the I/UCRC Center, providing structure and guidance in the organizing and evaluating of the research program. The evaluator is responsible for implementing the NSF Center Assessment Program which includes; provide NSF with the Center's developmental history in the form of annual historical profile updates, conduct annual written survey studies with the Center's faculty and sponsor organizations, conduct exit interviews of industrial sponsors terminating center affiliation. The evaluator also attends semi-annual Industrial Advisory Board (IAB) meetings.